Molecular Sensor Technique for Crosslinked Polymers

Cure composition, kinetics, mechanism, molecular mobility, and mechanical properties of several cross-linked polymers will be characterized by using molecular sensors in the form of a reactive diamine-type dye to mimic the reactivities of an aromatic diamine in epoxy, polyimide and polyurea. The changes produced in the UV-VIS spectra and fluorescence behavior by these dyes will provide information on cure compposition and kinetics. In polyimides it will be possible for the first time to distinguish amic acid-imide from di-imide; the kinetics of imidization can thus be obtained with greater detail than is currently possible by any other spectroscopic technique. We also propose to synthesize new sensors to be applied to the above systems in order to further improve spectal separation. Then, photoisomerization of the labels and the probe molecule will be studied to characterize molecular mobility and free volume during cure. Mechanical and physical properties of crosslinked polymers will be measured as a function of cure composition, extent of reaction, or chain end concentration, in order to establish composition-structure-property correlations. The basic scientific information obtainable from this research will enable this molecular sensor technique to be utilized for "in-process" cure monitoring of high performance composite materials via fiber-optic techiques. This is a grant under the Materials Processing Initiative.